SUNFEST- Undergraduate Research Experience in Senor Technologies

9912154
Van Der Spiegel

SUNFEST is a 12-week summer undergraduate research program at the University of Pennsylvania with the mission of providing students in engineering and science with hands-on experience in the area of sensor technologies.